Robotics and Automation Laboratory Development

The robotics and automation laboratory is being expanded with the addition of color graphics workstations, software for three-dimensional animation of robots and automated manufacturing systems, and the construction of robot arms. The equipment enhances instruction in off-line programming, workcell design, robotic assembly planning, manipulator design, end-effector design, robot dynamics, simulation, and real-time control. The graphics workstations and robot arms are networked to allow uses such as a complete CAD modeling, optimization, and simulation of a robotic application followed by downloading of software to control the robot arms for task execution.